SBIR Phase I: Ultra-Sensitive Botulinum Toxin Sensor

This Small Business Innovation Research (SBIR) Phase I research project aims to develop a sensitive detection system for botulinum toxin (BTX) detection in food and water. The assay will be based based on molecular wire fluorescent polymer signal amplification.

Fast, sensitive and reliable detection of life threatening toxins such as BTX is of great interest to public health officials and the technology developed in this project may simplify the detection of BTX in food and water. If successful, the technique may be modified to detect other toxins as well.